Workshop for Utilization of Research on Engineering and Socio-Economic Aspects of the 1985 Chile and Mexico Earthquakes

The magnitude-7.8 March 3, 1985 earthquake in Chile and the magnitude-8.1 and magnitude-7.5 September 19-20, 1985 earthquakes in Mexico significantly affected engineered structures in and inhabitants of large densely populated urban areas. National Science Foundation- sponsored investigations of these earthquakes have yielded impressive results. This project will serve as a mechanism to transfer this information to practicing seismic design professionals and other earthquake hazard mitigation specialists in the United States. Applied Technology Council and the Earthquake Engineering Research Institute will organize a workshop for NSF-researchers and U.S. practitioners and other specialists to: (1) summarize and review the results of the NSF- sponsored investigations of these earthquakes; (2) identify deficiencies in existing standards of practice revealed by these research findings; (3) identify other lessons that have been learned that would impact earthquake hazard mitigation policies and procedures; (4) develop recommendations for improved standards of practice and other earthquakes hazard mitigation activities, and (5) identify and rank research needs.